Computer-Based Learning Tools for Basic Algebra

The main aim of the project is to conduct computational investigations of intelligent tutoring tools, in coordination with empirical studies both in the field and laboratory. The main computational goals are to expand the pedagogical expertise of an algebra tutor, and to investigate tutoring tools that can help students learn new kinds of algebra skills in novel learning situations. In developing the current algebra tutor, we discovered that little research precisely describes teaching tactics and strategies. Our pedagogical enhancements to the algebra tutor attempt to formalize such knowledge, and to provide a computational framework for testing representations of pedagogical policies. In addition to developing pedagogical enhancements, several algebra tools or environments will be constructed. Each tool will be designed to help students learn skills that are not taught in the traditional algebra curriculum, including higher-level problem solving skills, and skills in problem finding and formulation. The tools will also allow students to learn using regimes other than traditional drill-and- practice. They provide a situated problem solving environment that embeds mathematical reasoning in a meaningful context. Empirical studies will be conducted in both field and lab settings. Continuing field-based research in the local high school will carry out relatively formal studies of facets of the tutor and the algebra tools, while the lab studies will test software at a much more formative stage.